RUI: Learning the Rules that Govern the Folding and Stability of Coiled Coils.

Fairman
MCB-9817188:

Coiled coils are motifs which involve the interaction of sets of a-helices
and are stabilized largely through hydrophobic amino acids that line the
interface of the structure. This study focuses on a natural four-chain
coiled coil model motif from Lac repressor to quantitate sequence-structure
relationships in a systematic fashion. A mutational approach is used to
study the effects of different amino acid sidechains at specific positions
in the Lac repressor coiled coil. Experimental strategies involve
synthesis of peptides by solid-phase synthetic methods, purification by
reversed-phase chromatography, and biophysical characterization. Coiled
coil stability is measured by the oligomeric states during temperature or
chemical denaturation, peptide concentration titrations using circular
dichroism spectropolarimetry and analytical ultracentrifugation. Using
such approaches, a series of experiments will systematically explore the
relationship between coiled coil stability and several defining
characteristics of coiled coils. Sequences chosen for study will test the
relationship between helix length and stability, the role of hydrophobic
amino acids on stability and oligomerization, the importance of side-chain
interactions at other heptad positions on tetramer stability, and the
ability to design simplified sequences based on rules so learned.

With an understanding of the determinants that define coiled coil
structure, it will be possible to design novel structures that may be of
use in nano-engineering, particularly for the synthesis of long
"nanoropes", and with appropriate modifications, may even be converted into
conducting materials such as "nanowires." This project is well-suited for
an undergraduate laboratory since the synthesis and characterization of
each peptide described herein is a project unto itself and can be
accomplished easily within the constraints of a one-year senior research
project. Important skills that will be learned by undergraduate students
include rigorous quantitative methods in protein biochemistry using
biophysical methods and cross-cutting interdisciplinary methods that span
from biology and chemistry to physics and mathematics.